Optical Activity Determinations in Chemistry and Biochemistry

Spectropolarimetry is being fully integrated into the undergraduate chemistry curriculum at Trinity University. A polarimeter equipped with a monochrometer and continuous sources affords applications that demonstrate the essential characteristics of optical activity measurements in understanding the 3-dimensional structure of chiral molecules. Determination of the optical rotations of inorganic complexes and organic compounds, the measurement of optical rotatory dispersion curves in conformational analyses and base stacking of nucleosides, and the determination of the specific rotation of pure enantiomers by modern methods are among the activities students are experiencing.